AMP: Planning Conference To Identify Achievements and Needs in Teaching College-Level Mathematics, Engineering, and the Sciences in UNCF Member Institutions

9452820 Gray The United Negro College Fund, Inc. requests a grant of $48,600 to hold a planning conference with published proceedings that will review information complied on all existing programs in the sciences, mathematics and engineering in its member colleges and universities. This conference will identify outstanding current programs as well as main areas of need for improvement, and devise a strategy of development of collaborative programs that could significantly increase the retention and graduation rates in these fields over a five-year period.